Logic Programming with Continuations

Continuations provide a general abstraction of sequential control. If they are provided in the context of a logic programming language, more dynamic variations on the search strategy become possible. However, when continuations are invoked to perform 'lateral' control transfers, as in variations on breadth-first search, it is necessary for the values of logic variables to be restored. This is related to the problem of maintaining multiple environments in the context of or- parallelism. The state-space model of control has been extended to solve this problem, allowing continuations to be used in the context of logic programming. For the last several years the semantics and uses of first- continuations in the context of imperative and functional programming has been explored. It is now possible to extend much of this work to the context of logic programming. Topics to be investigated include the modeling of Prolog extensions using continuations, the use of continuations in conjunction with engines to obtain search strategies based on computation time, the development of formal models and reasoning systems for continuations in the context of logic programming, and the investigation of more general issues of reification and reflection in logic programming. This research should provide a better understanding of control in the context of logic programming.